RUI: Multilayer Neural Network With Multi-Valued Neurons, its Application to Image Recognition and Processing and Incorporation of the Research Results into the Educational Process

Abstract

"This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)"

The project focuses on the development of a new tool for solving pattern recognition problems. This tool is based on the application of an original artificial neural network — multilayer neural network with multi-valued neurons. This network has a simple and productive learning algorithm, which allows to solve recognition and classification problems that are difficult to approach using other techniques. An example is multiple-class classification problems. The project involves solving multiple-class image recognition problems, such as texture classification, textural segmentation, blurred images recognition, and intelligent edge detection.
The research involves study of nonlinear phenomena of a multilayer neural network based on multi-valued neurons (MLMVN). A multi-valued neuron (MVN) is a complex-valued neuron whose inputs and output are located on the unit circle. A multilayer neural network based on this neuron has a derivative-free self-adaptive learning algorithm. It outperforms other techniques in terms of training speed and classification/prediction rates. The following problems are considered in this project. The relationship between the topology of MLMVN and the quality of multiple-class classification is investigated. MLMVN is used for texture classification, textural segmentation, and as an edge detector for noisy images. The Fourier phase spectrum is used as a feature space for blurred images recognition using MLMVN. A hardware implementation of MVN and MLMVN is also considered. These studies will involve undergraduate students, who participate in scientific research as part of their education at Texas A&M-Texarkana. Hence, in addition to obtaining answers to fundamental questions related to artificial neural networks and pattern recognition, this project also is closely tied to educating students who will become scientists and engineers.